Collaborative research: Developing cancer-specific targeting near-IR photosensitizers for in vitro theranostic photodynamic therapy and photothermal therapy

Non-Technical Summary

Phototherapy involves the use of light to treat disease. Photodynamic therapy (PDT) and photothermal
therapy (PTT) are specialized forms of phototherapy that employ a light-responsive molecule to create
reactive oxygen species (ROS) or heat, respectively, to treat cancer. In contrast to traditional
chemotherapy, PDT/PTT is highly selective because light can be delivered specifically at the tumor and
thus confines the toxicity to the tumor. The widespread use of PDT for cancer treatment has been limited,
in part, by the drawbacks associated with the photosensitizing molecules approved for this therapy. They
tend to require shorter wavelengths of light that do not penetrate tissue as well as near-infrared light, cannot
treat oxygen-deprived tumors, cause prolonged cutaneous sensitivity to sunlight, and are poorly soluble in
aqueous solutions. PDT could become more widely available as an adjuvant cancer therapy if better
photosensitizers can be developed. This project will address some of these challenges with novel
photosensitizers based on the transition metal iridium (Ir). These new molecules will be activatable with
near-infrared light and able to generate ROS even when tumors oxygenation is low. The proposed Ir
molecules are unique in that they are equipped with special functional groups designed to shift the activation
wavelength of the molecules into the near-infrared while maintaining good ROS generation efficiency.
Meanwhile, these near-infrared absorbing Ir molecules will also produce heat that will further maintain
phototoxic effects in the absence of oxygen through PTT. The combination of PDT with PTT could
significantly enhance the cancer treatment efficiency, especially toward oxygen-deficient tumors. In
addition, folic acid will be attached to the Ir molecules for added discrimination for certain types of tumors,
such as triple negative breast cancer.

The proposed research and educational and outreach activities will boost biomaterials research at North
Dakota State University (NDSU) and the University of Texas at Arlington (UTA), and will have broader
impacts on the biomedical field in general. The scientific community will benefit from a deeper
understanding of heavy transition-metal complexes and their application as near-infrared photosensitizers
in the field of phototherapy. The interdisciplinary nature of this project will provide the involved graduate
and undergraduate students with training opportunities in synthesis, spectroscopy, and photobiology, which
will prepare these students for the future biomaterials workforce. The proposed outreach activities
involve/expose tribal college students, high school students, and underrepresented African
American/Hispanic students in/to modern biomaterial research and technology transfer, which will increase
the diversity of the future workforce in biomaterials field. The two female PIs can serve as role models for
female students and encourage more female students to pursue scientific careers.

Technical Summary

This project aims to develop dual-action novel Ir(III) complex photosensitizers (PSs) for combined
photodynamic therapy (PDT) and photothermal therapy (PTT) of cancers. The proposed PSs are bis-terpyridine
Ir(III) complexes equipped with a chalcogenophene-substituted diketopyrrolopyrrole (DPP) unit
and folic acid. These PSs will be NIR (700-850 nm) activatable, exhibit cancer-specific targeting, and
generate efficient ROS and/or hyperthermia for treating hypoxic solid tumors such as triple negative breast
cancer (TNBC). The PIs posit that attaching a chalcogenophene-substituted DPP motif to one of the
terpyridine ligands will shift the absorption of the PSs to the NIR regions while maintaining the long-lived
DPP localized 3pi,pi* state as the lowest-energy triplet excited state. It is anticipated that the long-lived triplet
state will provide sufficient time for bimolecular interactions with oxygen for efficient ROS generation even
under hypoxia. In addition, the strong NIR absorbing PSs are expected to generate hyperthermia effects
for PTT as an alternate relaxation pathway due to the much lower-energy triplet states associated with NIR
PSs. The combination of PDT with PTT could significantly enhance the cancer treatment efficiency,
especially toward hypoxic tumors. Folic acid will be introduced to the other terpyridine ligand for specific
targeting of cancers with overexpressed folic acid receptors. The photophysics of these new and improved
Ir(III) PSs will be systematically investigated according to their absorption and emission profiles and triplet
excited state lifetimes. The effectiveness of the proposed PSs as in vitro PDT/PTT agents and the
photosensitization mechanism(s) and subcellular targets will be explored using the TNBC MDA-MB-231
cell line. The proposal addresses the major challenges to current PS development, i.e. high dark toxicity,
inability to be activated by tissue penetrating NIR light, low ROS generation efficiency in hypoxic solid
tumors, low cancer selectivity, and water insolubility. The success of this study could benefit the biomedical
field of phototherapy by providing a deeper understanding of heavy transition-metal complexes and their
application as NIR PSs, which would eventually enable PDT/PTT to be applied to deep-seated, high-volume
tumors, leading to more effective cancer therapies for some hard-to-treat solid tumors, such as TNBC.